MSM: Adaptive Multi-Scale Model Simulation, Reduction and Integration for Cardiac Muscle Physiology

Bassingthwaighte
0506477
The aim of the project is to lay the foundations for multi-scale modeling of human physiology with specific application in cardiac and muscle physiology. The results will provide computational strategies and algorithms spanning multiple modeling scales (regulation of transcription, cellular energetic metabolism, cell-to-cell interactions, integrated organ contractile function). The project will develop methods for adaptive multiscale modeling, simulation and model reduction. The project will combine (a) modeling for myocyte- smooth muscle cell-endothelial cell interactions and the signals controlling them, (b) automated model reduction allowing adaptation of these cell types to changing states and more efficient computation in pseudo-steady states, and (c) parameter identification at subcellular to overall systems levels. The simulation results will provide new insights into the behavior of the physiological system by integrating models of cardiac and skeletal muscle systems showing adaptive responses to various physiological conditions that exist in both heart and skeletal muscles. The proposed research will initiate inter-disciplinary collaborations among faculty members and graduate students from engineering and life sciences at the University of Washington.